Communications in Embedded Control Systems

Egerstedt, Magnus
CCR-0207411

Communications in Embedded Control Systems - Project Summary
This project investigates how different embedded software and hardware
components should communicate with each other in order for the overall, global
system to behave in a satisfactory way. The main area of investigation is the
information theoretic content of the transmitted signals, i.e. a study of how
many bits of information need to be transmitted between the different components
in order to make the physical system meet its specifications. For instance,
autonomous robotic systems are normally relaying on a variety of heterogeneous
sensors, and the question then becomes, which of the sensors are needed? And
furthermore, is it possible to compress the data in a systematic way, e.g. using
virtual sensors, so that information that is not essential to the current task,
or mode of operation, can be discarded?

Since the sensory data needed for accomplishing a certain task depends both on
the control law, the dynamics of the system, and the complexity of the task,
information theory provides a tool for treating questions concerning sensor and
actuator selection and control mode design in a unified way. This project is
focused on the following two enabling areas of research:
1. Modeling of the information theoretic content of the symbolic, computer
generated inputs used for controlling continuous, mechanical devices.
2. Selection of embedded sensors and actuators for a multi-agent, robotic
system. This selection is done so that the control system meets its
specifications in the presence of bandwidth constraints, i.e. so the robots
maintain formation while avoiding obstacles in the environment.

In this project computer generated, or linguistic control commands are modeled
as strings of mode descriptions that can be read by trigger based hybrid
systems. In other words, models for software based control of physical,
continuous devices are developed in such a way that the actual control signals
have a clear information theoretic content in terms of code lengths, thus
connecting the field of multi-modal control with that of information theory.
This model enables the investigation of component integration issues. Since each
sensor or actuator contributes to the total number of bits needed for coding the
control signals, by minimizing the code lengths subject to the constraint that
the system should behave in a satisfactory way, a natural measure of what
components are needed in the current mode of operation is derived. Furthermore,
the explicit focus on code lengths has immediate implication on coding theory,
i.e. a theory for how the information shared between different embedded
components should be represented is a direct consequence of this research.

The information theoretic approach to control theory under investigation in this
project has a number of potential applications outside the field of embedded
control. For instance, in teleoperated robotics the control signals are
transmitted over communication channels in which the presence of channel noise
makes it preferable to transmit instructions that are as short as possible. A
related problem arises in the area of minimum attention control, where an
attention functional is defined as a measure of the control variability.